International Research Fellow Awards: Ecology, Behavior, and Physiology of Four Neotropical Hylid Frogs

9707864 Bevier The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a six-month postdoctoral research visit by Dr. Catherine Robb Bevier to work with Dr. Carlos Arturo Navas at the Universidade de Sao Paulo in Brazil. This project involves field and laboratory studies of two tropical and two subtropical Brazilian treefrogs, the Hylids. These frogs exhibit variation in calling effort, habitat types along altitudinal and latitudinal clines, and body temperatures during periods of activity, allowing the study of their underlying physiological mechanisms from an ecological and behavioral perspective. Brazil offers a unique and environmentally variable field site, along with access to a population of closely related but behaviorally and ecologically diverse frogs. Dr. Bevier brings her research experience in the area of physiological and biochemical correlates of behavioral performance in frogs, while Dr. Navas is an expert in metabolic physiology. The results of their research will benefit scientists who have an interest in animal adaptation to cold and exercise physiology. ***